Polarized Electron Physics

This project involves the study of polarized electron collisions with chiral molecules, metastable states of noble gas targets, and ground-state targets of the same atoms. The proposed experiments will address basic physics questions about the dynamics of electron-molecule and electron-atom scattering, and may provide the first unambiguous evidence for an electron analog to the well- known phenomena of optical activity. Another aim of the program is new, compact sources of polarized electron, a "turnkey" source.